Mathematical Sciences: Differential Geometric and Real Analytic Methods in Nonlinear Control Theory

The principal investigator will work on a broad class of problems from nonlinear control theory, including local and global controllability, observability, and minimal realizations. Special emphasis will be placed on nonlinear stabilization and nonholonomic motion planning. The techniques of nonlinear control have many practical applications from robotics to landing a space probe on some distant planet. It is one example of the power and applicability of nonlinear mathematics in the modern world.